Conference on Inverse Spectral Geometry, June 20-28, 2002, Lexington, Kentucky

DMS-0207125
Peter Perry and Carolyn Gordon

This award provides partial support for active research mathematicians with limited means
of support to attend and participate in the Conference on Inverse Spectral geometry to be
held at the University of Kentucky, June 20-28, 2002. The conference will consist of two
parts. The first (June 20-22) is a series of special lectures by Steven Zelditch
(Johns Hopkins University), Richard Beals (Yale University), Peter Perry
(University of Kentucky), and Tanya Christiansen (University of Missouri) covering inverse
spectral problems, scattering theory, and analysis on the Heisenberg group. The second is
a workshop on inverse spectral geometry (June 24-28) with three morning lectures and one
afternoon lecture to allow maximum time for discussion and collaboration.
Conference themes are:

(1) Scattering theory for the Heisenberg group and Two-Step Nilpotent Lie Groups
(2) Direct and inverse scattering problems for the Laplacian on exterior domains and
non-compact Riemannian manifolds
(3) Geometric invariants which are (are not) spectral invariants on compact
Riemannian manifolds
(4) Geometry of the Hodge Laplacian on p-forms on compact Riemannian manifolds

Further information is available at http://www.ms.uky.edu/~isgconf/
or from the conference organizers:

Peter A. Perry [email]
Carolyn Gordon [email]